Collaborative Research: Refining the use of scleractinian cold-water coral skeleton-bound d15N as a proxy for marine N cycling

Refining the use of scleractinian cold-water coral skeleton-bound d15N as a proxy for marine N cycling

Recent studies show that cold-water corals and their skeletons provide valuable information about the marine nitrogen (N) cycle. This information can shed light on the processes that both drive and respond to changes in Earth’s climate. Cold-water corals are found across the global ocean and can be dated with decadal precision, offering spatial and temporal records of the N cycle in the past. In addition, a single skeleton can be used to reconstruct both surface and deep ocean composition. Despite the promise of cold-water corals, we don’t fully understand how they record changes in the marine N cycle. We must strengthen this understanding before we use cold-water corals to produce reliable records of marine N cycling across space and time, across different coral species, and under different lifestyle and feeding patterns. This project examines how the isotopic composition of organic N trapped in coral skeletons is linked to marine N cycle properties. The study includes a series of lab experiments, measurements of live corals sampled from the natural environment, and measurements of coral skeletal material from different ocean regions and depth horizons archived in museums. The project involves undergraduates at St. Olaf College, Pomona College and Mt. San Antonio College, one of the largest community colleges in Southern California. These students will conduct the research with scientists and peers in collaborating labs. Participation in the project will build student research skills and scientific knowledge for advanced study and prepare students for the scientific workforce. The project will also develop educational materials, including YouTube videos, to promote interest in marine science and awareness of how climate change influences global oceans. These educational materials will be created in collaboration with high school students from underrepresented groups.

The main tool used to investigate marine N cycle history is the isotope composition of particulate organic nitrogen (δ15N-PON) exported from the euphotic zone, which can be accessed using sedimentary archives such as foraminiferal tests, anoxic sediments and soft corals. Recently, the δ15N of organic N trapped within asymbiotic scleractinian cold-water coral (CWC) skeletons has been shown to record the δ15N-PON exported from the surface ocean (Wang et al. 2014; Wang et al. 2017). In order to reliably apply CWC δ15N as a proxy, however, we must explain a ~8.5‰ offset between the δ15N of organic nitrogen within the CWC skeleton and the exported δ15N-PON in regions of coral growth (Wang et al. 2014). The nature of the δ15N offset must be accounted for to be confident that CWC records marine N cycle history consistently across space and time, across different coral species, and for corals with different lifestyle conditions. Through coral culture experiments, measurements of live corals samples from the natural environment, and archives of corals skeletal material from different ocean regions and depth horizons, this research will test whether the offset arises from: (1) a biosynthetic isotope offset between CWC tissue and skeleton, (2) an unusual trophic transfer between CWC tissue and diet, and/or (3) coral feeding on material with elevated δ15N relative to exported δ15N-PON. This work will also provide estimates of N turnover time in CWC, which are scant, and will inform trophic ecology of CWC.